U.S.-Australia Cooperative Research: Cloning P450 Insectide Resistance Genes

9513285 ffrench-Constant This award will provide partial travel support for Dr. Richard ffrench-Constant, and two of his graduate students, from the Department of Entomology at the University of Wisconsin, to conduct collaborative research with Dr. Stephen C. Trowell of the Australian CSIRO Division of Entomology, Black Mountain Laboratory, in Canberra. The focus of the research is on technology transfer gained in the analysis of Drosophila cytochrome P450 to the economically important pest Helicoverpa, species of which show P450 mediated resistance to pyrethroid insecticides. The more specific objectives of this collaborative study are: 1) to document cytochrome P450's role in insecticide resistant strains of Drosophila; 2) to clone homologous P450's from resistant strains of Helicoverpa; and, 3) to examine the role of resistance conferring P450's from both Helicoverpa and Drosophila in insecticide metabolism following functional expression of recombinant clones. The budworm, Helicoverpa, is the primary pest of cotton in both the United States and Australia. The pest is currently being controlled using pyrethroids, but the mechanism of pyrethroid resistance is not known. This collaborative study aims to define the precise mechanisms of pyrethroid metabolism in resistant strains in order to look for selective P450 inhibitors or synergists, and to enable a rational choice of effective pyrethroid compounds and alternative pesticides. The collaboration is supported in Australia through the Department of Industry, Science and Tourism (DIST).